Zoned Metamorphic Garnets: Implications for Reconstruction of Reaction Histories and Pressure-Temperature Estimation

The principal investigator will do fundamental analytical research on the nature of chemical zoning in metamorphic porphyroblasts, and will develop detailed models for the processes that produce both prograde and retrograde zoning. The data will be used to constrain theoretical models for garnet zoning as a kinetic monitor of metamorphic heating and cooling rates.